Computerization of Systematic Synthesis Design

This research is being funded by the Organic Synthesis Chemistry Program. Dr. Hendrickson is developing a computer based system to aid in the complicated process of synthesizing the variety of structures that are found in nature or the new molecules needed to meet the demands of our society. The computer provides an important tool in making choices among the myriad possible routes to synthesize new structures in an efficient and economic manner. The first version of a computer program (SYNGEN) was developed which creates the shortest synthesis routes of construction reactions only by a protocol based on convergent assembly of the target molecule from real starting materials in a catalog. The program proceeds without resort to a database library of reactions and without operator intervention. The program will be developed into a fully practical tool for organic chemists, refining the presentation to present the best routes foremost and to offer literature precedents on command. Ancillary developments will include several new strategies for synthesis design and expanded capabilities into special chemistry. The reaction and starting material bases available for synthesis will be organized and used to assess the nature of existing syntheses in the literature to gain more insight into the logic of design strategies in actual use.